NSF-CBMS Regional Conference in Mathematical Sciences: New Horizons in Multiple Comparison Procedures August 13-17, 2001

An NSF-CBMS Regional Conference in the Mathematical SCiences entitled, "New Horizons in Multiple Comparison Procedures" will be held during August 13 - 17, 2001 at Temple University, Philadelphia, PA. Professor Yosef Hochberg of Tel Aviv University, Israel, a leading researcher in the area of multiple comparisons, is the principal lecturer who will deliver a series of ten lectures covering some of the most important recent advances in multiple comparisons. Ample time will be provided after each lecture for informal discussions, and one-hour talks willbe given by each of a number of additional speakers. A major focus of the conference will be opportunities for students and new researchers, particularly those from the Philadelphia area, to engage in dialogues with established researchers to gain a deeper understanding of newer ideas in multiple comparisons. The funds requested will be to support the participation of about ten established and fifteen younger researchers having credentials in the area of multiple comparisons, with an emphasis on those from traditionally underrepresented groups.